Optimized and Compiled Parallel Execution of Logic Programs

This research seeks the efficient parallel execution of Logic Programs via the REDUCE OR process model. The model is aimed at exploiting large-scale parallel processors. By design, it is suitable for shared memory as well as message passing machines. It attempts to extract maximum parallelism from logic programs by dealing with AND and OR parallelism and handling their interaction effectively. An interpreter in C that runs on Intel Hypercube, Encore MultiMax, Sequent, ALLIANT and a simulation system has been developed. A binding scheme and runtime system were designed and implemented and key optimizations developed. The challenge is to control the overhead in the model so that it surpasses compiled sequential Prolog with a few processors, and to demonstrate that it is a useful way of programming large parallel machines. This will be achieved with an optimizing compiler, using static analysis, annotations, optimized algorithms and a streamlined runtime system. Identifying absence of "embedded" variables and determinacy in specific clauses will allow generation of code close to that produced by sequential compilers. Grain-size control will reduce the proportion of system overhead. Other issues involve generation of effective dependence graphs, and various control strategies.